MRI: Acquisition of an Aerosol Time-of-Flight Mass Spectrometer for Research and Undergraduate Research Training in Properties of Atmospheric Aerosol Particles

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Carleton College will acquire an aerosol time-of-flight mass spectrometer. This equipment will enhance research in a number of areas including a) the study of the chemical content and source origin of aerosol particles found in the Carleton College area; b) the exploration of wet deposition of particles through both rain and snow washout; and c) the study of the emissions from diesel engines as a function of various operating parameters.

A deeper understanding of aerosol particles in the atmosphere is crucial to understanding the environment and health effects. This project will provide opportunities for Carleton College undergraduates, in collaboration with undergraduates and graduate students from the University of Wisconsin - Madison, and senior scientists from both institutions to work together.